NSF Representation on Performance-Based Design Project Steering Committee

9724947 Tubbesing As part of a Cooperative Agreement with FEMA, Earthquake Engineering Research Institute EERI has undertaken a project to produce an Action Plan that will lay out the necessary steps that must be taken to develop performance-based engineering design criteria and the tools necessary for engineers to communicate performance concepts to building owners, building officials, and other design professionals. FEMA intends to use the Action Plan to initiate a Performance-Based Design Program for new and existing construction. This project will provide funds to complement FEMA funding to support the participation of an additional steering committee member selected from universities who would represent the engineering research perspective in all activities of the Project Steering Committee, in order to ensure its inclusion in the resulting Action Plan. This is an interagency collaboration in support of the National Earthquake Hazard Reduction Program (NEHRP) activities. ***